Visual Geometry

This project, Visual Geometry, is producing new, coordinated, multi-media geometry materials: computer-animated videotapes of three-dimensional figures for high quality visual images, associated workbooks for constructing and investigating three- dimensional figures, and a microcomputer program for interactive study of related two-dimensional geometry concepts. The Geometer's Sketchpad will be a general purpose, two-dimensional drawing program designed for constructing and manipulating geometric figures. It will be useful with both standard geometry materials and with the units produced by this project. The materials are being designed to fit into the standard high school curriculum, and will be flexible enough to be used by an entire class, small groups of students, or even for individual study. The materials are being done in a way to be appealing to people who wish to improve their visual geometry skills, even if they are not taking a geometry course. The entire program is being thoroughly and broadly tested. Additional videotapes to familiarize teachers wit the uses of the materials will also be made. There are plans for broad dissemination; the project staff will also take advantage of the growing market in home-study video. In a pilot project, the proposers have set up a microcomputer system to produce professional quality video animation of three- dimensional geometry concepts. In addition to the materials produced by the project, the staff will be able to provide software and information to others who wish to work with the media of animated videotapes and videodiscs.//